RUI: Mechanical Behavior of Basement Rocks in Rocky Mountain Foreland Folds

The nature of the mechanical behavior of high-grade, isotropic basement rocks that allow them to accommodate the fold shapes of sedimentary cover sequences is a problem common to many orogens. This renewal will continue research on several examples of such folds in the Rocky Mountain foreland. This work will synthesize existing data on the fold geometry and detailed kinematic information of these examples. Results are expected to be applicable to a number of orogens containing basement-cored folds.